Earth & Sky Nanoscale Science and Engineering Radio Shows

EarthTalk, Inc. will develop and air 24 90-second shows per year for three years on the subject of nanotechnology on the Earth & Sky radio program. They will partner with Nano Science and Technology Institute (NSTI), Boston; Nanoscale Science and Technology Facility (CNF), Cornell University; and Center for Biological and Environmental Nanotechnology (CBEN), Houston to identify researchers, advisors and program ideas. Program categories will be Nano 101; Innovations that Could Change the World; Science or Science Fiction; Implications and Ideas; Nano and the Environment; and Listener Questions. The Earth & Sky program currently airs on 685 stations nationwide, making 323 million gross impressions each year; new shows will create some 64 million gross impressions. They will be supplemented by related material on Earth & Sky Online, which receives up to one million page views/month, and a composite of the nano programs onto CD mailed directly to 10,000 teachers yearly.